Instrumented Borehole Seals for the Ocean Drilling Program

This proposal requests funds for development of the downhole sensors, design of a valved port through which borehole fluids can be drawn from depth, and construction of these components for six borehole seals to be deployed by the Ocean Drilling Program.